III-COR-Small: Beyond Keyword Search: Enabling Diverse Structured Query Paradigms over Text Databases

The text available on the Web and beyond embeds unprecedented volumes
of valuable structured data, "hidden" in natural language. For
example, a news article might discuss an outbreak of an infectious
disease, reporting the name of the disease, the number of people
affected, and the geographical regions involved. Keyword search, the
prevalent query paradigm for text, is often insufficiently expressive
for complex information needs that require structured data embedded in
text. For such needs, users (e.g., an epidemiologist compiling
statistics, as reported in the media, on recent foodborne disease
outbreaks in a remote country) are forced to embark in labor-intensive
cycles of keyword-based document retrieval and manual document
filtering, until they locate the appropriate (structured) information.
To move beyond keyword search, this project exploits information
extraction technology, which identifies structured data in text, to
enable structured querying. To capture diverse user information needs
and depart from a "one-size-fits-all" querying approach, which is
inappropriate for this extraction-based scenario, this project
explores a wealth of structured query paradigms: sometimes users
(e.g., a high-school student in need of some quick examples and
statistics for a report on recent salmonella outbreaks in developing
countries) are after a few exploratory results, which should be
returned fast; some other times, users (e.g., the above epidemiologist
investigating foodborne diseases) are after comprehensive results, for
which waiting a longer time is acceptable. The project develops
specialized cost-based query optimizers for each query paradigm,
accounting for the efficiency and, critically, the result quality of
the query execution plans. The technology produced will assist a vast
range of users and information needs, by enabling efficient, diverse
interactions with text databases -- for sophisticated searching and
data mining -- that are cumbersome or impossible with today's
technology. The research and educational components of the project
will rely on -- and encourage -- a tight integration of three
complementary Computer Science disciplines, namely, natural language
processing, information retrieval, and databases. The project will
also provide data sets and source code, for experimentation and
evaluation, to the community at large over the Web (http://extraction.cs.columbia.edu/).